Rural Systemic Initiatives in Science, Mathematics,and Technology Education - RSI: Coalfield Rural Systemic Initiative: Building Bridges to the Future

This project is organized around six Interventions, each with implementation strategies targeted at the various administrative and teaching levels. Superintendents, school board members, and principals will participate in Leadership Institutes that will enhance the leaders' abilities to support the resource, policy, and instructional alignments and revisions necessary to accomplish the reform. Math and science specialists will provide guidance and technical assistance in the development and implementation of standards-based programs in math and science, and will assist district personnel to review and analyze data and other information necessary to gauge progress. They will work with and through the district and school improvement plans, and will help develop collaborations with higher education institutions and other reform projects.